Mathematical Science: SACNAS Mathematical Sciences Summer Institute

Castillo-Chavez 9600027 ABSTRACT The 1996 SACNAS Mathematical Sciences Summer Institute (SMSSI) is a six-week summer program at Cornell University organized in conjunction with the Society for Advancement of Chicanos and Native Americans in Science (SACNAS) and the support of the National Security Agency, Cornell University's Provost Office and the National Science Foundation. SMSSI will bring between 20 and 30 Chicano, Latino and Native American undergraduates to Cornell University for an intensive six-week summer program in mathematical biology. The 1996 SMSSI will take place between June 17 - July 26, 1996. Participants will receive round-trip transportation to Ithaca, NY, room and board, and a $2000 stipend. The program is designed for undergraduates who will complete their sophomore or junior year during 1996. Students majoring in mathematics, biology, or related fields and who have had a year of calculus, are eligible to apply. The academic content of the 1996 Institute has been designed by Principal Investigator Professor Castillo-Chavez, a leading mathematical biologist at Cornell University and a member of the Board of Directors of the Society for Mathematical Biology. Emphasis will be placed on studying the mathematical theory of population dynamics and its applications to demography, ecology, epidemiology, and evolutionary biology. The SMSSI will include dynamical systems and stochastic processes seminars, a writing seminar intimately connected to the study of theoretical biology, analysis and numerical simulations of mathematical models associated with group research projects, workshops on applying for admissions and funding for graduate school, and colloquia given by invited mathematicians and scientists. Applications may also be requested from the SACNAS office by phone: 408-459-4272 or e-mail: [email]. Additional information about the program may be obtained by contacting Herbert A. Medina by phone at 310-338-5113 or via e-mail a t [email] or Carlos Castillo-Chavez by phone at 607-255-5488 or via e-mail at [email].